Superresolution Imaging of Semiconductor Quantum Dot Clusters

The Macromolecular, Supramolecular and Nanochemistry (MSN) program of the Division of Chemistry will support the research program of Prof. Alan Van Orden of Colorado State University. In collaboration with investigators at the National Renewable Energy Laboratory, Prof. Van Orden and his students will employ high resolution imaging methods to study electronic interactions in small clusters of luminescent quantum dots. The study aims to uncover new basic science about the nature of electronic interactions in quantum dots assemblies.

The project will uncover new basic science about the nature of electronic interactions in luminescent semiconductor nanoparticles assemblies that will be of great value in the rational design of optoelectronic devices, such as solar cells. The synergistic collaboration with researchers at the National Renewable Energy Laboratory will provide training opportunities to students and postdoctoral researchers in a field of science that has a direct impact on alternative energy research.